Mathematical Methods for Novel Modalities of Medical Imaging

Kuchment
DMS-0604778

The investigator and his colleague develop mathematical
techniques, both analytic and numerical, for obtaining images of
biological tissues. They concentrate on mathematical issues that
arise in recently introduced imaging methods for which there is
little mathematical theory: Thermoacoustic Tomography (TAT),
Ultrasound-Modulated Optical Tomography (UOT), and
Acousto-Electric Tomography (AET).

Computerized tomography has become a major method of medical
diagnostic imaging and industrial non-destructive testing. Over
time, many modalities have been developed, such as X-ray
tomography (usual CAT scan), MRI, Emission Tomography, Optical
Tomography (OT) and Electrical Impedance Tomography (EIT), to
name only a few. All of them have their advantages and
disadvantages in terms of contrast between different biological
tissues, resolution, cost of devices and procedures, and safety
of the patient. For instance, cheap and safe procedures like EIT
and OT are plagued by low resolution. Recent years have brought
novel methods of imaging that intend to overcome these problems
and have a high potential for becoming cheap, safe and effective
diagnostic tools. These are Thermoacoustic Tomography (TAT),
Ultrasound-Modulated Optical Tomography (UOT), and
Acousto-Electric Tomography (AET). They all combine different
types of radiation to overcome the known difficulties of methods
involving only one of these modalities (e.g., optical tomography,
ultrasound imaging, or electrical impedance tomography), such as,
for example, low contrast of ultrasound imaging and high
instability and low resolution of optical and electrical
impedance imaging. Mathematical issues are among the most
crucial in development of these methods, because images have to
be obtained by sophisticated mathematical procedures rather than
by direct acquisition as in the standard (non-tomographic) X-ray
imaging. However, in all these modalities necessary analytic and
numerical tools are essentially absent or at very early stages of
development. Thus, the investigators develop mathematical
analytic and numerical techniques for obtaining images of
biological tissues, with the primary targets being TAT, UOT, and
AET. The project aids development and implementation of several
new, cheap, and safe methods of medical diagnostic imaging to be
used in clinics. Some applications for non-destructive
industrial testing are also possible. Graduate students play a
significant role in the project, and some of the project's
techniques and results are incorporated into graduate-level
classes. This prepares students for work in exciting
contemporary areas at the junction of exact sciences and medicine
and biology.